Fundamentals of Conjugated Ionomer Electronics

This technical component of this project deals with certain fundamental principles
underlying the application of ionically functionalized conducting polymers, so called
conjugated ionomers, to electronics. The three primary goals of the project are: (1) to
elucidate the mechanism of current rectification at pn junctions based on conjugated
ionomers; (2) to elucidate the mechanism of steady-state rectification in a new class of
heteroionic junctions formed between an undoped anionic and cationic ionomer; (3) to
explore a non-traditional method of doping conjugated polymers that relies on non-
Faradaic processes. To achieve these goals, a comprehensive suite of electrical and
electrochemical characterization methods are applied to study a series of rationally
designed polymer bilayer structures. These studies are complemented by studies on
single layer structures and rely heavily on the availability of a family of conjugated
ionomers or varying ionic functional group density. The results of the characterization
methods are to be compared to both theories developed for inorganic semiconductor
analogues as well as those developed for molecular systems.
The broader impacts of the proposal stem from better understanding the relation
of polymeric to inorganic semiconductors as well as the unique properties of interfaces
between mixed ionic/electronic conductors. In doing so, these studies will help guide the
future development of electronic and optoelectronic devices, such as transistors and lightemitting
diodes, based on conjugated polymers. The project will also impact the training
of both undergraduates and graduate students in the basic science of materials. Graduate
students working on the project will be part of a comprehensive training program that
integrates chemists and physicists and includes targeted technical training in the area of
semiconductor devices as well as off-campus internships. A broad range of
undergraduates will be reached by the project both through their contributions to research
and through curriculum development. A new non-majors undergraduate course will be
developed that teaches basic chemical and physical principles using everyday materials
and the devices upon which they are based as a context.